Doctoral Dissertation Research: The Industrial Production of Medications in France

Introduction
Homeopathy plays a prominent role in the consumer healthcare market in France, unlike the US where it plays a marginal role. In France, it both competes with and is complementary to biomedicine. At the center of this strategic ambiguity are the globules (small beads) of homeopathic medicines, which are made to embody this dual role. By directly observing and interviewing key actors in the industrial production of homeopathic medicines in France, this project addresses the following question. How are homeopathic remedies produced to function as both a contestation of and complement to biomedical therapies?

Intellectual merit
Despite its increasing market presence in France and elsewhere, including the United States, homeopathy has largely failed to garner the attention of scholars of anthropology and the social studies of science. This project will begin to fill this gap in our knowledge and shed light on the industrial dimensions of an alternative treatment regime. It will focus on the range of processes by which knowledge, technology, and politics play decisive roles in the production of a treatment commodity. The production of a homeopathic remedy entails continual material and symbolic transformation through the application of various technologies (such as agricultural, laboratory, manufacturing) and forms of expertise (such as farming, scientific, marketing, regulatory). How this production process is shaped by evidence-based research, technologies and expertise, values and ideologies, national and international regulation, and a host of uncertainties is at the core of this inquiry. It engages domains of knowledge related to the social studies of science, the anthropology of medicine and pharmaceuticals, and the anthropology and sociology of business in order to produce an integrative analytic approach.

Potential broader impacts
The results of this study will provide the social sciences with a much-needed tool to expand its traditional domains to include sites whose technologies, materials and methods both mirror and diverge from those of biomedicine and rethink a category of healthcare whose identity and activities situate it both inside and outside the traditional domains of medical anthropology.